Nonlinear Problems in Convex and Conformal Geometry

Abstract

Award: DMS-0604638
Principal Investigator: Wenxiong Chen

The principal investigator will work on a series of nonlinear
partial differential equations, integral equations and systems,
as well as other nonlinear problems. Most of the problems arise
from differential or convex geometry, such as the semi-linear
elliptic equations from prescribing Gaussian and scalar curvature
and the Monge-Ampere equations from the well-known Lp- Minkowski
problem.

According to Einstein, the Universe we lived in is a curved
space, in which gravity is realized as a distortion or bending of
space-time in the neighborhood of a massive object and this
change of shape is measured by curvature. One of these projects is focused
on understanding when a given function can
become a curvature. This is a challenging problem in global
analysis and has interesting consequences in Riemannian Geometry.
The other of the PI's major projects, the Lp Minkowski problem,
is the central question of the Brunn-Minkowski Theory, which is
the very core of Convex Geometric Analysis. Results in this area
have been applied to numerous disciplines, including stereology,
stochastic geometry, integral geometry, number theory,
combinatorics, probability, statistics, and information theory.
The nonlinear partial differential equations and integral
equations and systems studied in this project also have various
applications in physics, chemistry, and biology. One example is a
modeling of chemical reaction in rivers or in blood streams,
which would provide useful information in controlling pollution
in rivers.